CISE MII: Infrastructure for a New Program in Computer Science at the University of Puerto Rico - Río Piedras Campus

EIA-0080926
Moreno, Oscar
University of Puerto Rico-Rio Piedras

MII: Infrastructure for a New Program in Computer Science at the University of Puerto Rico - Rio Piedras Campus

This project focuses on establishing a Division of Computer Science at the University of Puerto Rico-Rio Piedras (UPR-RP). Specifically, the project will involve: (i) cooperation with University of Puerto Rico-Mayaguez to offer a joint Ph.D. program in computing and information sciences and engineering, (ii) enhancement of cutting-edge computer science research at UPR-RP, (iii) increase in the number of underrepresented students completing a Ph.D. in computer science and (iv) increase in the production of cutting edge research projects in computer science. The new equipment will be used to enhance existing research activities at UPR-PR and to attract four new faculty who have a proven ability to engage in cutting edge research. The grant will support directly nine graduate students.

.